REG: Identification and Control of Dynamic Systems Using Neural and Fuzzy Designs

9411866 Nair This project deals with the development of a high-speed integrated control station for carrying out fundamental studies in modeling and intelligent control of nonlinear dynamic systems using neural networks, fuzzy logic, and neuro-fuzzy architectures. The control station is also equipped to interface with real-world hardware systems for performing on-line control studies. The equipment acquired under this grant facilitates real-time implementation and analytical studies such as parameter convergence, tracking control, learning and adaptation issues with unmodeled dynamics, high speed operation, disturbance rejection control and stochastic control. ***